Support of Travel of American Chemists to the XI International Conference on Phosphorus Chemistry, July 3-7, 1989, Tallinn, USSR

A group of about 23 organic chemists will be selected to receive travel assistance to attend the XI. International Conference on Phosphorus Chemistry in Tallinn, USSR which will be held July 3 to 8, 1989. The U.S. chemists will present technical talks and have the opportunity to interact with specialists in phosphorus chemistry from all over the world. The possibility of travel support will be advertised and the applications will be reviewed by a panel of scientists. Professional and geographic considerations will be considered in the final selection of grantees. This travel grant is being funded by the Synthetic Organic Chemistry Program.